Physics and Chemistry of Magnetic Interactions in Semiconductors

A collaborative interdisciplinary materials research program on dilute magnetic semiconductors (DMS) and magnetic semiconductors is proposed. This program involves a unique combination of high magnetic fields, low temperatures, advanced optical techniques, and new materials development in order to study the microscopic interactions of magnetic ions in a host semiconductor. The organizations involved are: the MIT National Magnet Laboratory (NML), the Physics Department at Tufts, and the Chemistry Department at Brown University. The plan is to study the magnetic, optical, and electric-transport properties, as well as the crystal chemistry of several classes of dilute magnetic semiconducting materials. This grant supports the effort at Brown University.